Field Theories and Elliptic Cohomology

Abstract

Award: DMS-0707068
Principal Investigator: Stephan Stolz

In previous joint work with Peter Teichner, the principal
investigator was successful in collecting evidence that elliptic
cohomology is closely related to super symmetric field theories
by showing that the partition function of a super symmetric field
theory of dimension 2 is an integral modular form; the space of
super symmetric field theories of dimension 1 is homotopy
equivalent to the infinite loop space determined by the real
K-theory spectrum and that a 0-dimensional super symmetric field
theory over a manifold represents an ordinary cohomology class
(with real coefficients). These advances support the belief of
the principal investigator that he and Peter Teichner have found
the right way to incorporate `super symmetry' and `locality' in
Graeme Segal's definition of quantum field theory. The principal
investigator is optimistic that this might be the crucial step
necessary to solve the two decade old problem of how to relate
field theories and elliptic cohomology. A particularly
interesting aspect is that the `push forward' maps in these
cohomology theories seem to correspond to physicists'
quantization procedures via functional integrals, which are
mathematically not well understood.

The last two decades have seen very fruitful interactions between
theoretical physics and topology. On a philosophical level this
is not surprising since topology can be understood broadly as the
study of `qualitative' aspects in mathematics, and it is to be
expected that it is the QUALITATIVE aspects of a complicated
quantum system (i.e., the aspects that don't change when varying
the parameters of the theory) that should be easiest to
analyze. This interaction has deeply influenced both areas with
physicists using sophisticated tools from topology, and
topologists incorporating ideas from quantum field theory. The
principal investigator hopes that relating super symmetric
quantum field theories of dimension 0,1 and 2 to well- studied
objects in topology, namely `generalized cohomology theories'
will significantly strengthen that interaction by bringing the
calculational power of algebraic topology to physics and the
physical/ geometric meaning of these cohomology classes to
topology.